Postdoctoral Fellowship: MSPRF: Logarithmic Enumerative Geometry and Mirror Symmetry

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Samuel Johnston is “Logarithmic Enumerative Geometry and Mirror Symmetry”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Davesh Maulik.